Fourth U.S.-Japan Young Researchers Exchange Program on New Instrumentation for Nanoscale Structures

US-Japan exchanges

This proposal is to secure support for an exchange of young researchers, from the United
States and Japan, working in the area of nanotechnology. This is the fourth such exchange
between the two countries and will primarily focus on new instrumentation for nanoscale
structures. It is scheduled for 2007, with 14 young researchers from Japan visiting the
U.S. in March with a reciprocal visit by 14 young U.S. researchers to occur in the summer
or fall of the same year. During the 7 to 10 day visits, the participants will travel to
leading research centers to investigate current research in each others countries. The
objectives of this exchange program are to develop and strengthen connections between
young U.S. and Japanese researchers (primarily at the assistant professor level), in the
discipline of nanotechnology and, specifically, nanomanufacturing.
The intellectual merit lies in the exchange of scientific and technical information, in
the emerging, fast growing and ever-important field of nanotechnology. The broader impact
lies in continuing and future intellectual exchanges and the promise of continuing a
mutually beneficial collaborative relationship between these two technology leading
countries